Mathematical Sciences Scientific Computing Research Environments

The Department of Mathematics at U.C. L.A. will purchase computer equipment which will be dedicated to the support of research in the Mathematical Sciences. The equipment will be used for several research projects, including in particular: Computation in Algebra, Computation in Algebraic Geometry, and Computation in Interacting Particle Systems.